Workshop on Multidisciplinary Complex Systems Research

This award will support the Multidisciplinary Complex Systems Research Workshop to be held at the National Science Foundation in Arlington, Virginia, September 12-14, 2016. The workshop will bring together a diverse group of experts in complementary areas of complex systems and will be preceded by a series of weekly webinars. The overarching goal of the activity is to address scientific issues that are relevant to the scientific community and bring to surface possible areas of opportunity for multidisciplinary research in the study of complex systems. The specific goals of the workshop include: 1) identifying the most substantive research questions that can be addressed by fundamental complex systems research; 2) recognizing community needs, knowledge gaps, and barriers to research progress in this area; 3) identifying future directions that cut across disciplinary boundaries and that are likely to lead to transformative multidisciplinary research in complex systems. The outcomes of the workshop will include the preparation of a report to inform the scientific community at large of the current status and challenges as well as future opportunities in multidisciplinary complex systems research as perceived by the participants of the workshop.

The workshop is motivated by the observation that many processes in natural, engineered, and social contexts exhibit emergent collective behavior and are thus governed by complex systems. Because challenges in understanding, predicting, designing, and controlling complex systems are often common to many domains, a central objective of the workshop is to facilitate the exchange of ideas across different fields and avoid disciplinary boundaries typical of many traditional scientific meetings. The workshop participants will include experts both in theory and in applications as well as a selection of postdoctoral researchers and graduate students from various domains. Because of the cross-disciplinary nature of the workshop, the participants themselves will become aware of the latest developments in fields related to but different from their own. This environment will foster discussions on the state of the art, potential issues, and most promising directions in multidisciplinary complex systems research. The inclusion of early-career researchers will help to promote the transfer of this expertise to the next generation of engineers, mathematicians, and scientists.